CAREER: Learning and Sharing Transferable Grounded Object Knowledge for Collaborative Robots

Advances in visual and non-visual sensing technologies (e.g., artificial sense of touch) have enabled robots to greatly improve their object manipulation skills. Understanding how objects move, sound, and feel like can improve human-robot collaboration in tasks such as assembling components in manufacturing environments or sorting objects in warehouses and distribution centers. However, learned object knowledge by one robot cannot easily be used by a different robot, with a different body, sensors, and movement actions. In practice, this means that when a new robot is deployed, it has to learn many of its skills and much of its knowledge from scratch. This Faculty Early Career Development (CAREER) project will develop methods for transferring object knowledge across robots so that a newly deployed robot can make sense of the experiences of other robots that have operated in the same or similar environments. This project will facilitate the ability of collaborative robots in homes and workplaces to perceive and reason about the properties of objects. Robots in assistive settings will be better at learning tasks that require the sense of touch, for example, helping a disabled person take off their shoes. The project will also improve robots’ ability to connect language to visual and non-visual perception, for example, helping robots recognize that a particular object can be referred to as “soft”, which is important when humans and robots use language to communicate about objects.

Multisensory object knowledge includes recognition models that ground language in multiple sensory modalities (e.g., a classifier that recognizes if an object is “soft” given haptic readings produced when pressing the object) as well as forward models which predict changes in the robot’s environment as a result of its actions. The research objective of this project is to enable multiple heterogeneous robots to learn and share multisensory object knowledge to reduce the amount of interaction data each individual robot needs to collect. This project hypothesizes that two or more robots with different embodiments and sensors can learn to transfer multisensory representations through the use of shared embedding spaces, to which robots map their own experiences and from which they learn using the experiences of other robots. This research will develop the theoretical framework for such transfer along with algorithms and representations that scale to large numbers of robots, sensory modalities, objects, and interaction behaviors. Experimental evaluation will be conducted using existing datasets in the beginning, as well as new datasets with increasing complexity that will be collected with multiple robotic platforms.